Theoretical Studies in QCD, Electroweak and non Standard Model Physics

This proposal covers a spectrum of topics, ranging from astrophysics, to QCD collider physics, to physics beyond the Standard Model. The PI's propose to study neutrino interactions with external magnetic fields, ultrahigh energy neutrino-nucleon interactions and non-standard models of dark energy. These processes are important for supernova and for high-energy neutrino astronomy experiments. Experimental consequences of noncommutative geometry for positronium decay will be investigated. Several processes important to collider physics such as the production of the Higgs boson and di-photons as well as the production of heavy quarks will be studied using next to next to leading order perturbation theory in QCD as well as resummation schemes. A scheme for calculating rates for multi jet events expected at LHC will also be investigated.